Spiraling Into Control: Ultra High-Impedance Superconducting Resonators for Strongly-Coupled Spin-Cavity QED

Quantum technology has the potential to provide resource-efficient approaches to computing, communication, and sensing. Two leading platforms for quantum information processing are electron-spin qubits in semiconductors and superconducting circuits. This study aims to couple these two systems together to create a hybrid quantum system consisting of a single electron spin in a cavity which may have diverse applications in fields like metrology and quantum computing. Furthermore, this project aims to broaden participation of underrepresented minorities and improve STEM education by involving high-school summer interns from the Rochester City School District in the proposed research and developing course material on quantum science together with high-school teachers.

The research proposed here will explore a new approach for quantum-mechanical interaction between individual electron-spin qubits and superconducting microwave photons, with the goal to establish strong coupling in a spin-cavity QED system. Although coupling between spins and superconducting microwave resonators has previously been demonstrated, the interaction is not strong enough for robust quantum-information-processing applications, including spin-photon state transduction and multi-qubit operations between distant spin qubits. To overcome this challenge, the proposed research will explore a new type of spiral microwave resonator, which is predicted to enable much stronger spin-photon coupling strengths than previous resonators, owing to its high impedance. This proposal aims to verify this prediction by fabricating niobium spiral resonators and integrating them with quantum dot spin-qubit devices. The large spin-photon coupling enabled by this work will pave the way for the realization of long-distance interactions between spins, spin-photon state transduction, and the creation of new hybrid quantum systems.